SGER: Hardware and Software Tools for Micro Assembly using Intelligent Motion Surfaces

Software tools are defined as abstract tools that can be programmed to vector field systems to perform a desired task, such as centering, rotating and filtering field configurations. Hardware tools are defined as generic objects that can interact with other objects being manipulated by the vector field system, in manners that are suitable for mechanical assembly operations. Examples of hardware tools include grippers, sliders, compliant fixtures, etc. These tools can be viewed as basic building blocks of micro-assembly manipulation tasks, that together define an API for the development and specification of micro manipulation strategies in a modular way, using a "high level language". This research will investigate utility tools on both sensorles and sensor-based frameworks. Path planning in a compliant accommodating vector force field system will also be investigated.